Principles and Implementation Techniques for the Recovery Component of a DBMS (Computer and Information Science)

This research investigates the limits of transaction system performance on computer systems with a high degree of parallelism. The performance of a database management system is dominated by its recovery component. The proposed work will address methods of minimizing the time taken by the recovery component of a database management system. The methods to be investigated are of two types: one type is the use of "non-blocking" methods of guaranteeing recoverability. The other type uses knowledge of transaction semantics, including the implementation of concurrency control and recovery separately for different levels of abstraction. The importance of this work is that many industries such as banks, financial markets, and reservation systems are making heavy use of large-scale shared databases. The databases that make this possible must be updated quickly and correctly, even when many customers are accessing the same data. Also, the shared databases must function reliably, even when some of the computer components fail. The research conducted here will lead to reducing the time required to reliably process a request, below the time required by present day state-of-the-art systems.